Modernizing the Geography Laboratory Experience with ERDAS

James Madison University will purchase an 80386-based computer workstation, ERDAS satellite imaging hardware and software, and associated computer peripherals. This equipment will be used to improve instruction in lower-and upper-division geography courses. Students will be trained in the use of modern digital imaging techniques in remote sensing. In addition, advanced undergraduate students will use the equipment for special projects. James Madison University will match the NSF equipment grant with an equal amount of funds, and will provide additional support for faculty training.